A Survey of Living Conditions in the Arctic: Inuit, Saami and the Indigenous Peoples of Chukotka

ABSTRACT: OPP-0071082
Kruse, John A.
Cochran, Patricia A.
University of Alaska Anchorage

Part of an international effort involving a partnership of researchers and indigenous organizations in Greenland, Canada, Norway, Sweden, Finland, Denmark, Russia, and the United States, this project seeks to understand the relationships between economic development and Native-state arrangements and their effects on living conditions among Inuit, Saami, and Chukotkan peoples. Results of the study are intended to provide circumpolar Native organizations and local governments with information to help make policy decisions. The key research question is how are the rapid social, political, economic and environmental changes occurring in the Arctic today affecting the people there? This portion of the international study will address this question as a formal pretest of the research design (questionnaire and field methods) in Alaska.